Strategic Persuasion and the Manipulation of Knowledge Structures in Social Choice

For the past twenty years, theories of social choice have emphasized the
important effects of institutions. However, the cognitive structures with which
individuals represent a decision context are also important. These mental
models, or knowledge structures, create categories and relationships among
alternatives, thereby influencing the existence and characteristics of an
equilibrium. In previous papers it was shown that in both cooperative games such
as social choice and non-cooperative games such as coordination problems, the
prospects for stability are greatly improved when players have shared mental
representations (despite having conflicting preferences). These results are
broadly referred to as a "knowledge-induced equilibrium."
Although a knowledge-induced equilibrium is immune to manipulation by insincere
voting, the more interesting question is the extent to which players can
manipulate others' mental representations--such as through framing, discourse,
or persuasion--in order to influence the collective outcome. This "second-order"
strategic behavior is much closer to William Riker's concept of heresthetics. The task
of this project is to explore the possibilities and characteristics of
manipulation in the knowledge-induced equilibrium framework. More specifically,
the investigator constructs a game model where players can send signals to a subset of other players to which they are persuasive in an attempt to alter the mental
representations of the decision context and thereby altering the collective
outcome. Players' strategies include heresthetical tactics such as arguing
relationships among alternatives, adding or removing alternatives from the
choice set, and influencing the distribution and depth of other players'
knowledge representations. Results from the project contribute to several
topics, including (1) explanations of the endogenous emergence of shared
knowledge structures through strategic dialogue, (2) the identification of
structural positions or contexts that are "lever points" in that a player has
disproportionate ability to direct the outcome through strategic persuasion, (3)
a formalization of a set of heresthetical maneuvers along the lines called for
by Riker, (4) applications to bargaining and negotiation theory, and (5) the
development of an alternative index of power based on equilibrium opportunities
for strategic persuasion rather than on the combinatorics of coalitions.